National Workshop on Freshman Engineering Student Success

9353918 Landis This project is developing a portable modular short course which faculty can take within their institutional context to better prepare themselves to teach engineering to freshmen. Topics covered will include 1) understanding engineering students, 2) achieving effectiveness in classroom teaching, 3) the freshman year curriculum and early student development, 4) student/faculty interaction, 5) the importance of the peer environment, 6) teaching to a diverse student population, and 7) case studies of best teaching practices. Specific materials to be developed include self-assessment instruments, monographs, videotapes, and study guides to the videotapes. Materials will be developed with the consultation and assistance of a National Action Committee of distinguished engineering educators. Evaluation of the developed materials will be via actual use by engineering faculty during formative development and a summative survey of users of the final materials. Dissemination of the course materials will include the usual conference and journal avenues. An additional avenue to be pursued includes commercial publishers. ***